A Product Design and Fabrication System for Sheet Metal Products

9522963 Nnaju Research conducted under this award is to develop a product assembly modeler (PAM), which provides detailed information for successful mechanical or manual assemblies of a product. This modeler includes requirements for the assembly environment, feasible approach directions, precedence constraints, symmetries, and spatial relationships. The spatial relationships of the design give product specifications, functional requirements, and define the mating positions and degrees of freedom of motion of components. PAM is equipped with its own on-board graphics capabilities for visual assistance. This research applies the mathematical theory of symmetry to spatial reasoning in an effort to simplify the computation and geometric complexities of product assembly. If successful, the result will be a stand-alone product assembly moderler, designed to assist in the assembly of product that accurately demonstrates the designer's intentions.